Studies in Elementary Particles

9515527 Barnett In this proposal Professor Barnett requests support for participation of his group at Johns Hopkins University in the CDF experiment at Fermilab. The upgraded CDF detector is planned to have superior tracking and vertex detection, leading to a new capability for heavy quark physics. ***